Presidential Young Investigator Award

This is a Presidential Young Investigator Award to Dr. Fultz, whose research interests include electron microscopy, diffusion, and ordering kinetics in metallic alloys. Computer simulation of atomic relaxation in nonequilibrium metals, experimental Mossbauer spectroscopy, and x-ray analysis of rapidly-solidified alloys are part of his research program. The emphasis is on the kinetic paths that nonequilibrium metal alloys take as they progress towards equilibrium.